2016 Siegman International School on Lasers. To be held July 24-29, 2016 in Barcelona, Spain.

Title: 2016 Siegman International School on Lasers

Abstract:
The 2016 Siegman International School on Lasers which will take place during 24-29 July 2016 in Barcelona, Spain. The Siegman International School is a week-long program that exposes students to in-depth learning of lasers and their applications. With world respected instructors and networking discussion times, the program will increase interest in the field of optics and photonics and broaden inclusion opportunities for young professionals in underrepresented groups. With nearly 167 applicants, nearly10% of the participants are from developing nations.